RUI: Waves in Hamiltonian Systems with Applications to Bose-Einstein Condensates

Kapitula
DMS-0806636

The governing equations for the wave function of a
Bose-Einstein condensate (BEC) are Hamiltonian; in particular,
they are a variant of the nonlinear Schrodinger equation known as
the Gross-Pitaevskii equation. The analysis of this physical
system leads to several intriguing fundamental mathematical
problems for Hamiltonian systems which deal with the existence,
spectral stability, and nonlinear stability of waves. The major
mathematical problems to be addressed in this proposal include
(a) the construction and spectral stability of fully
three-dimensional waves in the presence of a cigar magnetic trap
via the technique of spatial dynamics, (b) the construction and
spectral stability of two-dimensional periodic waves in the
presence of an optical lattice, and (c) a careful study of
eigenvalues with negative Krein signature. Regarding (c), there
are two avenues that are to be explored: (1) the determination of
embedded eigenvalues of negative sign in the case that the
solitary wave is realized as a limit of a family of periodic
waves, and (2) the determination of the exact number of
eigenvalues with negative sign.

Especially since the 1997 Nobel Prize winning work of S.
Chu, C. Cohen-Tannoudji, and W. Phillips on the exotic quantum
phenomenon known as BECs, there has been a great deal of exciting
experimental and theoretical work in the study of BECs. In order
to form a BEC, it is necessary that the matter is cooled to
billionths of a degree above absolute zero; hence, BECs are
extremely fragile, and it is likely to be some time before any
practical applications are developed. Nevertheless, they have
proved to be useful in exploring a wide range of questions in
fundamental physics. Examples include experiments that have
demonstrated interference between condensates due to
wave-particle duality, the study of superfluidity and quantized
vortices, and the slowing of light pulses to very low speeds.
Vortices in BECs are also currently the subject of
analogue-gravity research, studying the possibility of modeling
black holes and their related phenomena in the lab. The
mathematical results of this proposal will help both
theoreticians and experimentalists better understand the dynamics
of not only patterns such as vortices, necklaces, and solitons in
BECs, but also the dynamics of waves and patterns in Hamiltonian
systems which are used to model interesting phenomena such as
waves in fluids and light propagation in optical fibers. The
inclusion and training of undergraduate students is an integral
part of this proposal. Introducing students to the interplay
between applications and experiments, numerics, and formal and
rigorous analysis, will lead them to being excited about seeing
the connections between the physical world and the mathematical
world. This will further lead the participating students towards
a deeper appreciation for the usefulness of mathematics in other
disciplines, and perhaps then allow them to be open to the idea
of doing more serious applied mathematics at the graduate level.
Calvin College has a history of producing successful Ph.D.
students in mathematics and statistics. Approximately one-third
of these students have been women, who are significantly
underrepresented in the mathematical sciences. Furthermore,
Calvin has been very successful in the education and training of
secondary education teachers. As a consequence of this award,
the investigator will be able to fruitfully support the
college-wide effort in training future researchers and educators
in the mathematical sciences.